STTR Phase I: MEMS Spatial Light Modulators for Large Telescopes

This Small Business Technology Transfer (STTR) Phase I project will develop a large-stroke spatial light modulator (SLM) for astronomical instrumentation. Key challenges to current astronomical instrument technology are the requirements for large piston stroke and for increased number of actuators. The proposed Phase I project will develop a piston SLM capable of achieving 10 micron stroke as the earliest path to the successful demonstration of a useable device for the astronomical community.

There is substantial demand for improved SLMs for large telescope programs and retrofits for existing telescopes. While mirror specifications vary among the various commercial and military applications, the astronomical community will benefit from cost savings realized from volume manufacturing. Beyond telescopes, commercial applications including free space optical communication for last mile links, ophthalmic imaging, and laser surgical instruments.